Electronic Sturctre of Disordered Solids

Principal Investigator plans to investigate three issues central to the understanding of disordered solids: 1) structural metastability in amorphous silicon; 2) apparant Bloch-like nature of electronic states in amorphous carbon; 3) microscopic mechanism of electronic conduction in disordered metals such as inversion layers in metal-oxide-semiconductor structures. New theoretical and computational methods will be developed for solving the electronic Schroedinger Equation for disordered materials.